U.S.-Japan Cooperative Research : DNA Structure and Dynamics in Biological Assemblies

This award will support a two-year U.S.-Japan cooperative science research project between Professor George Thomas, Division of Cell Biology and Biophysics, University of Missouri, and Professor Issei Harada, Pharmaceutical Institute, Tohoku University, Sendai, Japan. This project will attempt to determine vibrational models for a variety of DNA oligomers for assessing putative structural markers. Professor Harada will perform the UV resonance Raman measurements and normal coordinate analyses, while Professor Thomas will acquire the Raman and infrared data. The objective of the research is to determine the nature of DNA normal modes of vibration that generate conformation-sensitive Raman and infrared bands ("conformation markers"). The bands are important for diagnosing nucleic acid secondary structure in biological assemblies. They will be rigorously assigned using a combination of experimental and theoretical methods. The experimental data will be used to design a force field that accurately reproduces the observed frequencies, permitting the character of each normal mode to be ascertained (U.S. and Japan). This approach, which represents the combined application of normal mode analysis and isotope substitution, should elucidate the vibrational character of DNA conformation markers and provide for the first time a rigorous and quantitative basis for empirical DNA spectra-structure correlations.